NSF/CBMS Regional Conference in the Mathematical Sciences - Equivalence of dynamical systems under smooth changes of variables and rigidity - Summer 2001

We will discuss when two dynamical systems can be considered equivalent under a smooth change of variables.

This is a natural problem since results on dynamics should be invariant under changes of variables. The problem is also related to singularity theory (classifying functions up to smooth changes of variables of the domain and the range), the topological classification of dynamical systems, and the rigidity program of classification of group actions.

We will discuss the following situations, when a reasonable classification can be accomplished:
a) Local equivalence near a hyperbolic fixed point
b) Hyperbolic systems
c) KAM theory
d) Nilpotent groups
e) Renormalization.

The lectures will be pedagogical and will attempt to introduce people to this area of research.

Dates: June 4-8, 2001.
http://www.math.missouri.edu/~staff/conference/cbms-conf.html